SBIR Phase I: Internet Control Digital Microfluidic Chip for Diffusion of Science Education

This Small Business Small Business Innovation Research (SBIR) Phase I research project aims to develop a highly scalable, programmable and rugged biochip platform that can be internet controlled to serve as a remote student learning device for high school and college level scientific demonstrations.

The proposed technology would be of significant benefit to students at remote or under-resourced high schools and universities which lack traditional lab facilities, bench-top hardware and instruction. By enabling internet control of a remote biochip platform, student users can conduct basic scientific demonstrations, assays and experiments through internet control of sophisticated fluidic handling, sensing and analytical devices that are typically found only in advanced university laboratories.